Implicit Learning of Sequential Inputs: Developing a Computational Model

Many of the most important things people learn are learned without explicit instruction; often, people are not even aware that they are learning something. One of the most dramatic examples of this phenomenon is language. Virtually all speakers of a language learn to speak and understand before formal instruction even begins, and the learning process seems to be largely unaffected by attempts of adults to guide it. This style of learning contrasts with the more explicit learning which also occurs when people consciously attempt to master a domain, and which typically involves explicit formulation and testing of hypotheses. Although considerable research has been carried out on explicit learning, implicit learning has been investigated only recently. Furthermore, most of this research has been experimental, with relatively little work focussed on developing theories or computational models. The purpose of this research is to develop both a theory and a testable computational model of implicit learning of sequential behaviors. The research will use experimental techniques to ask the following questions: Under what conditions is implicit learning triggered? Are there domains in which implicit learning is more effective than explicit learning? What are the constraints on the types of things which can be learned with implicit learning? A second component of the research will focus on trying to understand the possible mechanism for implicit learning by developing a computational model. This model, based on an artificial neural network architecture proposed by Elman, has been shown to have interesting properties which resemble the behaviors of humans engaged in implicit learning tasks. Elaboration of this model should allow for better understanding of the circumstances which facilitate learning of domains such as language and might make it possible to structure training environments in order to maximize learning. This work should also provide a foundation for the construction of machine-based systems for learning domains currently only well-mastered by humans.